Affine Dual Polar Spaces

Shpectorov, 97-0114 The principal investigator will study affinization as applied to dual polar spaces. This process produces a large variety of interesting geometries with almost classical diagrams. There are many nice examples including several geometries of sporadic simple groups. The principal investigator proposes find all the most symmetric --flag-transitive-- affine dual polar spaces. The field of group theory is the mathematical theory of symmetry and interacts with many other disciplines, for example physics and chemistry outside of mathematics, coding theory, number theory and geometry inside mathematics.The investigatorıs particular area is finite groups and geometries. It is an old subject but still facing great unsolved problems and with many opportunities for breakthroughs.